Nonlinear Dirichlet Problems Involving Critical Exponents

This project will study the existence and multiplicity of radial and nonradial solutions to some nonlinear elliptic boundary value proplems. In particular the nonlinear Dirichlet problem when the nonlinearity is superlinear, with jumping, and at the critical exponent.